Potdoctoral Research Fellowship in Chemistry

Dr. Henry K. Chenault has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Chenault's doctoral degree was from Harvard University under the supervision of Professor George M. Whitesides. He intends to continue his research at Yale University under the sponsorship of Professor Samuel J. Danishefsky. Dr. Chenault's area of research will be stereoselective synthesis of the esperamicin aglycon.